Simulation Studies of Tornadic Vortices

The objective of this research is an experimental investigation of laboratory columnar vortices which are frequently useful representations of tornadoes. A new non-intrusive measuring device--laser velocimeter--will be used to investigate the region at the base of the vortex where the inflow layer erupts to form the vortex core; it is here that the lowest pressures and highest speeds are found. Air flow in the vortx core will be investigated using neutrally buoyant bubbles. Despite the fact that a laboratory aplparatus is in principle incapable of completely simulating actual tornadoes, it appears that several characteristics of laboratory vortices may reveal some of the essential physics of actual tornadoes. This prospect is further supported by theoretical work which is not restricted by the usual limitations of the laboratory. Thus, the laboratory results could suggest crucial measurements in actual tornadoes or a novel analysis of existing observatories.